Experimental Rheometry of Silicate Melts and Magmatic Multiphase Mixtures at High Temperature and Variable Shear Rate

Experimental studies will be run on the physical properties of silicate melts, and on vapor plus melt magmatic emulsions and foams, as a function of shear rate and temperature at atmospheric pressure. Other than the studies of Spera et al. (1988) there have been no laboratory studies of magmatic emulsions and/or foams, despite their ubiquity in nature. The information gained by this work will significantly enhance our understanding of the movement of volcanic magmas.